Tracing Thermocline Waters to the Ocean Surface to Link Glacial Thermocline Processes and Climate

During the last glacial period temperatures were colder, the thermocline base was shallower, nutrient concentrations were lower and oxygen minimum zone was indistinct. The PI will examine isotopic variations in formaminifera south of the glacial polar front in the North Atlantic to learn more about their relationship to thermocline and its dynamics and the changes in glacial polar front.